RIA: Parallel Processing Algorithms and Architectures for the Estimation of Higher Order Statistics

Manolakos The main goal of this project is the design and evaluation of VLSI architectures for the efficient estimation of Higher Order Statistics (HOS) from time-series data. In addition parallel algorithms to speed-up off-line HOS-based data analysis and modeling in parallel processing systems are being developed. Simulations are being performed on a Transputer-based multiprocessor for validation purposes and proof-of-concept prototypes will be designed using hardware description languages for performance/area estimation. As a by-product of this research, public domain parallel processing software will be provided on various platforms (CM, Transputers, Monsoon dynamic data-flow) to allow scientists who are not experts in signal processing to experiment with the powerful HOS-based techniques in the analysis and modeling of large amounts of statistical data.